CMG Research: Analysis and Application of XFEM to dynamic rupture processes in Earthquake physics

This project will provide both analysis and functioning open-source
software to evaluate the utility and applicability of the Extended
Finite Element Method (XFEM) to the problem of dynamic Earthquake
rupture on complex non-planar faults. While standard finite element
methods are applicable to many earthquake physics problems, the
requirement that the mesh be conformal to a complex, non-volume
forming network of faults is a fundamental difficulty, particularly in
3-dimensions. The XFEM, provides a potentially powerful alternative
by encoding discontinuous basis functions into the approximation space
without requiring faults to coincide with mesh edges, an approach that
naturally fits the earthquake rupture problem.

Preliminary work, however, demonstrates several complications that
arise in this application. Standard techniques for frictional failure
do not work with the XFEM, so new weak formulations of failure must be
developed. In addition, discrete singularities, which are effectively
removed in quasi-static engineering rupture problems, become crucial
in dynamic repeated rupture. These discrete problems can
fundamentally affect event statistics, and must be avoided.

The investigators will address these complications via analysis,
computation, and physical intuition. Specifically, they propose two
possibilities for weak failure criteria, and plan to test them with a
series of benchmark problems. Additionally, they propose analysis of
numerical accuracy of the weak frictional criteria, with the goal of
better understanding error in rupture propagation in these discrete
systems. In a second component, they plan to derive bounds for the
existence of mesh-fault interaction artifacts. Using these bounds, they
will either determine enrichment schemes that eliminate the artifacts
or develop meshing schemes to avoid them. Finally, the above work
will culminate in a proof of concept for the XFEM in repeated rupture
problems, and they will work to better understand event complexity in
complex fault systems. These problems provide an excellent
opportunity for collaboration between computational and applied
mathematicians and earthquake physicists.

Broader Significance:
Understanding the dynamics and probability of
Earthquakes on realistically complex fault networks is a fundamental
science and engineering problem that has direct consequences for
improved estimates of Earthquake hazards. Advanced computational
models, combined with observations, provide an important tool for
exploring and understanding these systems. A critical component of
such models, however is the geometric description and accurate
modeling of failure on non-planar faults which poses significant
challenges for traditional finite-element methods. This project will
investigate an alternative method that allows the description of the
fault network to be only loosely coupled to the computational mesh.
If this method is successful, it promises to significantly increase
the ease of describing and composing these problems and is better
suited to exploring the dynamics of fault networks, particularly under
the uncertainty of fault location. The proposed research will also
contribute to the computational infrastructure for modeling the
dynamics of brittle systems and earthquake genesis. The resulting open
source software will be distributed through the Computational
Infrastructure for Geodynamics (CIG: www.geodynamics.org), and be
accessible to a broad community of researchers with impact beyond the
immediate realm of Earthquake physics.